An Undergraduate Fluid Phenomena Laboratory

The physics department at the University of Puget Sound will purchase temperature-control circulators, chart recorders, and a freezer to enable students to perform advanced laboratory experiments and projects in several areas of fluid mechanics. They will carry out experiments in such areas as the physical properties of fluids, the transition to chaos in convecting systems, and the unstable convection which is set up as sea water freezes. In addition to experiments for the upper-division laboratory, the fluids lab will involve two or three students each year in independent study projects which are required for the B.S. in Physics.